Studies in Moduli Theory and Birational Geometry

The area of study of this project lies within algebraic geometry, the
branch of mathematics devoted to geometric shapes called algebraic
varieties, defined by polynomial equations. Algebraic geometry
has significant applications in theoretical physics, where physicists consider
algebraic varieties as a piece of the fine structure of our
universe. This is especially true with the first topic, moduli
theory. This theory studies a remarkable phenomenon in which the
collection of all algebraic varieties of the same type is often
manifested as an algebraic variety, called a moduli space, in its own
right. Thus in algebraic geometry, the metaphor of thinking about a
community of "organisms" as itself being an "organism" is not just a
metaphor but a rigorous and quite useful fact. The other topic studied in
this project is birational geometry, focusing here on resolution of
singularities, applied in this project to families of varieties.
Resolution of singularities is a fundamental procedure where "bad"
points of an algebraic variety are removed and replaced by "good"
points.

Abramovich will continue studying problems in birational geometry,
specifically the problem of functorial semistable reduction. Here
Abramovich and collaborators will build on Hironaka's method of
resolution of singularities in order to resolve singularities of
families of varieties. Long term goals include extending this effort
to other geometric categories and to singular foliations. In addition,
Abramovich will continue to study moduli spaces. The main foci are
Moduli and arithmetic of K3 surfaces, where one wishes to find
situations where K3 moduli spaces are algebraically hyperbolic;
representability of logarithmic moduli, where an analogue of Artin's
criteria is sought; a quest to describe explicit moduli of certain
stable surfaces; and completion of a long-term project on the
logarithmic degeneration formula.

--------